Developmental Regulation of Alpha-Amylase Isoenzymes in Different Genotypes of Rice

This is a Research Opportunities for Women Research Planning Grant, to enable Dr. Smith to initiate an independent research project to study the regulation of expression of different isoenzymes of alpha-amylase (a starch-mobilizing enzyme critical to seed germination) in rice.